Collaborative Research: Conference: 2022 CISE Education and Workforce PI and Community Meetings

CISE Education and Workforce (EWF) programs aim to create equitable and inclusive opportunities for computing education and develop a diverse workforce. STARS Computing Corps, a CISE Broadening Participation in Computing Alliance, will support two research community meetings: the CISE EWF Principal Investigator (PI) Meeting and the CISE Research Experiences for Undergraduates Site New PI Workshop. Both convenings will provide opportunities for the principal investigators of projects funded by CISE EWF programs to share their research outcomes, promising practices, and lessons learned.

Both the CISE EWF PI meeting and the REU Site New PI workshop will be large events for the Foundation and their respective community, bringing together PIs with representatives from government, academia, and non-profit. For each event, there is a pressing need to meticulously plan and organize agendas, venue and hybrid/remote conference logistics. This grant provides funding for the venue and logistics, including conference registration, audio visual, and meeting space for the hybrid CISE EWF PI meeting. It will also support the remote logistics of the CISE Research Experiences for Undergraduates Site New PI Workshop.